Mechanisms for the Formation of Coherent Structures from Small-Scale Turbulence in Anisotropic Flows

Geophysical turbulence may be modeled by a hierarchy of
partial differential equations including both
waves and turbulence. In each model, the vortical, non-wave motions
correspond to observed, long-lived structures such as the jet stream
of the tropopause, the persistent horizontal layers of the stratosphere,
and hurricanes. Despite decoupling of vortical modes and waves at
first order in weak turbulence expansions, numerical simulations
have demonstrated the generation of the anisotropic, vortical modes
from fast waves. These simulations suggest major modifications to
current models designed to capture only the large-scale dynamics.
For example, they show the dominance of vertically
sheared, horizontal flow modes in strongly stratified flows,
presently not included in large-scale models. Our work
focuses on (1) stability analyses to understand the
mechanisms responsible for the formation of slow, large-scale coherent
motions from fast, small-scale turbulence, and (2) the
development of improved ordinary and partial differential equations
describing the slowly varying, large-scale dynamics, reflecting
the physics observed in the numerical simulations.

Most current models of turbulence are based on isotropic theory, and
assume that small-scale turbulence acts as a sink of energy for
larger-scale flows. Such turbulence models are used in
numerical prediction, for example, of weather and climate change.
However, turbulence in nature and in engineering flows is anisotropic
more often than not, for example, due to the presence of
boundaries. In this study, we focus on anisotropy induced by
strong rotation and stratification, both of which give
rise to wave motions. In anisotropic wave-turbulence systems,
turbulence may act as a source of energy for larger-scale flows.
Furthermore, coherent structures often
emerge spontaneously from small-scale, random fluctuations.
One example in nature is the generation of hurricanes
from smaller-scale motions in the atmosphere. This study
aims to understand large-scale, coherent-structure generation
from small-scale turbulence in the atmosphere and oceans. In
addition, new models will be developed to capture these physical
phenomena, absent in current models. The results should impact
our ability to predict long-term variability in ocean-circulation,
weather and climate.